Symplectic Geometry and Applications

Abstract

Award: DMS-9971914
Principal Investigator: Jonathan Weitsman

The work in symplectic geometry on which this proposal focuses is
divided roughly into two overlapping areas. The first set of
problems is focused on developing a better understanding of
symplectic manifolds, and in particular on the topology and
geometry of symplectic manifolds equipped with group actions.
The past five years have seen a significant increase of the role
of the symplectic category in topology and geometry, as well as a
better understanding of the analogies and differences between
symplectic geometry and Kahler geometry. In this proposal we
propose to develop tools for the study of Hamiltonian and
symplectic group actions, as well as of the topology and geometry
of symplectic quotients. The second set of problems we are
concerned with is the application of ideas from symplectic
geometry to problems arising in other areas of mathematics and
mathematical physics. These problems are largely motivated by
the applications of quantum field theory to geometry and
topology, many of which either involve symplectic geometry
directly or else involve areas where symplectic geometry can help
to provide a better view of the geometrical structure that must
underlie these still-mysterious methods arising from physics.

The areas of mathematics involved---symplectic geometry and
mathematical physics---are areas which have their historical
origins in the physical sciences. As such, they have had a long
record of gaining insight from problems arising in the natural
sciences, as well as of making significant contributions to
applied problems. This record is one attained mostly by the
whole field over decades, rather than by individual contributions
over the short term. But to the extent that a long and consistent
past record can be used as an indication of the future, there are
excellent prospects that current work in these areas of core
mathematics will provide indispensible building blocks for
scientific and technological advances in the decades to come.